The Impact of ICT on Learning: An International 2002 Conference on OECD Studies

The United States and other industrialized nations in the Organization for Economic Co-operation and Development (OECD) have made large investments in information communication technologies (ICT) for schooling and expect these investments to advance not only school reform but life-long learning as well. For these aspirations to be realized, policy makers require information on how ICT impacts schooling and learning and how ICT might best be used to achieve a range of educational goals. This proposal requests partial financial support for an international conference to disseminate results of major research efforts of these issues in 23 OECD countries.